REU Continuing Award: Summer Undergraduate Research Assistantship Program

This project will bring ten undergraduates to the Washington University Campus in St. Louis, for an eleven week period in the summer of 1992. Recruitment will be national in scope. The participants will work as members of existing research groups at the University. Groups that will be involved include the following; the Advanced Networking Group, the DNA Mapping Group, the Drug Design Group, the Center for Intelligent Computing Systems, the Concurrent Systems Group, the Computer Visualization Group, the Office of the Network Coordinator, and the Electronic Radiology Laboratory.